High-Performance Internet Connection for Harvard University

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for the installation and mperation of a OC-3 ATM connection to a cooperative PoP connecting their local service provider NYNEX's ATM network and the the Very High Performance Backbone Network Service (vBNS). Applications include: - Astrophysics - High Energy Particle Physics - Molecular Cellular Biology - Whole Plant Physiology - Digital Library Applications - Data Center on Social Science - Medical Applications - Networking Research Collaborating with: - Indiana University - University of Cambridge - National Center for Biotechnology Infomatics - Berkeley Drosophia Genome Project The award provides partial support of the project for two years.